An Undergraduate Laboratory in High Resolution Graphics and Image Processing.

This project is to set up a high resolution computer graphics and image processing microcomputer laboratory. Using IBM PC/AT's as workstations connected by a local area network to a Cyber 170 computer, students will be able to apply various techniques of solid modeling, shading, animation and surface texturing. A slow-motion video tape recorder will be used to record images a frame at a time, which, when played back at normal speed will give the sensation of motion.